Study of the Distributions of Size, Shape and Abundance of Seamounts in the Pacific and Atlantic Oceans

This is a project to use statistical methods applied to multi-beam and wide-beam data to investigate seamount distributions in the Pacific and Atlantic oceans. The statistical methods have in large measure already been developed by the PI and applied to several data sets from regions in the eastern Pacific. The analyses will be extended to other regions in order to address scientific questions relating to (1) seamount size distributions (e. g., what are characteristic size-frequency distributions, what do these distributions tell one about source bodies, magma production and mantle dynamics?); (2) seamount shapes (e.g., how do shape parameters vary with size, geographical province, ocean basin, etc., and what do shapes tell us about seamount construction?); (3) mapping variations in seamount abundances and distributions (e.g., what is relative importance of off-axis production, sediment cover, lithospheric thickness, etc.?). This project should provide important new information on seamount statistics and how those statistics can be used to develop on models of seamount production and magmatic processes in the oceanic lithosphere and asthenosphere.